Higher Dimensional Algebraic Geometry

The investigator will work on several problems in higher dimensional
algebraic geometry. In a joint project with Alexeev, Hassett, and
Koll\'ar he plans to complete the proof of existence of coarse
complete moduli spaces of stable log surfaces, an analog of the moduli
space of stable curves. In another project the investigator is going
to work on boundedness, rigidity and hyperbolicity of subvarieties of
moduli stacks of canonically polarized smooth projective varieties.
These questions evolved from a landmark conjecture of Shafarevich, and
its solution by Arakelov and Parshin, which played an important role
in Faltings' proof of the Mordell Conjecture. Part of this project is
joint work with Kebekus. In a third project the investigator and
Hacon are going to study the impact of the existence of nowhere
vanishing differential forms on the geometry of the underlying
variety. Their goal is to prove several outstanding conjectures in the
area. In a fourth project the investigator and Araujo will work
toward proving a conjecture of Beauville giving a new characterization
of projective spaces and quadric hypersurfaces.

This research is in the field of algebraic geometry, one of the oldest
parts of modern mathematics, but one that blossomed to the point where
it has solved problems that have stood for centuries. Originally, and
still in its simplest form it treats figures defined in the plane by
polynomials. Today, the field uses methods not only from algebra, but
also from analysis and topology, and conversely it is extensively used
in those fields. Moreover it has proved itself useful in fields as
diverse as physics, theoretical computer science, cryptography, coding
theory and robotics. A central problem in algebraic geometry is the
classification of all geometric objects. In turn, an important part of
classification theory is the theory of moduli. The latter's core idea
is that one does not only want to understand these objects, but also
understand the way they can be deformed. Moduli spaces play a very
important role in theoretical physics. Studying curves on moduli
spaces provides information on how an object is changing in
space-time. One of the focuses of this project is on compact moduli
spaces. Those are extensions of moduli spaces in general and they give
additional information about singular deformations, ones that are
essentially different from others. Other goals of the project involve
a better understanding of certain higher dimensional varieties.